Application of NMR Instrumentation in the Undergraduate Pharmacy Curriculum

The Physical Science Department of the Albany College of Pharmacy has significantly enhanced its instrumental holdings by the recent acquisition of a nuclear magnetic resonance (NMR) spectrometer. The availability of this system is providing undergraduate students in pharmacy (forty per cent of whom are women) with practical experience in using NMR spectroscopy in several courses, including introductory organic chemistry, honors organic chemistry, drug analysis, and undergraduate research.